Arctic Research Commission

Abstract Arctic Research Commission OPP-9714570 This is the Interagency Agreement between the National Science Foundation and the Arctic Research Commission and provides for its continuing operations. The Arctic Research Commission was established under the Arctic Research Policy Act of 1984 (Public Law 98-373) and Executive Order 12501. The General Services Administration will provide administrative services. This action fulfills the intent of Congress to provide funding for the Commission through the NSF.